ITR/IM+PE+SY: Summer Workshops on Human Language Technology: Integrating Research and Education

We propose to organize yearly, intensive six-week research workshops
at Johns Hopkins University, focusing on Language Engineering,
including the mutually related areas of automatic speech recognition
and synthesis, natural language processing, machine translation,
information extraction and summarization. Applications of language
engineering techniques to other domains such as language instruction
or bioinformatics will also be appropriate workshop topics. These
workshops will bring together teams of leading professionals and
graduate and undergraduate students in a cooperative effort to
advance the state of the art. The first goal of the proposed workshop
series is to establish new research directions in Language Engineering.
The second goal is to attract students to the field and to offer
them an intensive hands-on mentored research education. The third
is to engender extensive cross-fertilization between researchers
distributed across industrial, academic and government institutions,
forging intensive links in the 6-week summer period and offering
a shared research environment for follow-on collaborative work.
To ensure that the projects address current problems in the state
of the art, each year an open call for workshop project proposals
will be issued to researchers in the worldwide language engineering
community. The proposals received will be evaluated competitively
at planning meetings held each year. The meetings will draw together
project proponents, government representatives, and experts from
related fields to assess the viability and promise of the proposals
and to identify three candidate projects for the summer workshop.
Throughout this process of soliciting proposals and recruiting
the personnel to carry them out, we will make a diligent attempt
to include researchers from underrepresented institutions and
communities.